Environmental Change and Species Interactions

Long-term environmental changes alter the abundance of species by directly affecting reproduction, mortality, and other demographic parameters. However, changes in species abundances are also affected by positive and negative feedbacks operating through ecological interactions within and among species. In the research stochastic models will be developed for population dynamics to predict how species interactions influence the effects of environmental changes on species abundances. In collaboration with other researchers, these models will then be used to integrate this theory with existing long-term data sets from different types of ecological communities.